Implicit Adaptive Mesh Radiation Hydrodynamics on MPP Architectures

9308955 Norman I propose to design and implement a scalable adaptive mesh radiation hydrodynamics simulation code for use on MPP platforms. This code will be quite general in the sense that can be used in many astrophysical situations to solve "Grand Challenge" level problems. Additionally, the algorithm and code rely on the solution of large parallel sets of equations, a situation for which MPP computing technology is well suited. My investigations will be oriented towards developing schemes for the efficient solution of these large parallel sets of equations.